SBIR Phase I: Novel Biological Aerosol Detector

This Small Business Innovation Research (SBIR) Phase I project is to investigate a novel technology concept, time-resolved, integrated laser-induced fluorescence, for the detection of airborne microbes. Some present detectors function poorly in the presence of diesel fumes or other pollutants, limiting their utility in urban areas. This novel detection device will not be susceptible to pollutant interference and would be simpler and less expensive than present detectors. Proof of concept requires measurement of fluorescence parameters for urban pollutants that are presently unknown so that the chosen parameters for biological aerosols can be shown to be distinctive.

The commercial applications of this project include detection of pathogens in homes, hotels, offices, and in the food distribution system.